CAREER: Automated Machine Learning Compilation for Emerging Models and Platforms

As artificial intelligence becomes ubiquitous in our daily lives, there is a critical need to cost-effectively deploy AI models to diverse environments, such as data centers, smartphones, and web browsers. This project aims to bring a new AI/ML compiler toolchain to help accelerate and automate AI deployments. The project’s novelties are: i) a unified way to represent optimizations in AI models, ii) bringing AI agents together with domain expertise to optimize deployment, and iii) end-to-end solutions for automated model deployment. The project's impacts are three-fold. First, it makes AI/ML models more accessible in a broad set of environments, from the cloud to local devices. Second, it helps improve the overall AI/ML tools and toolchain ecosystem by providing automated solutions to optimize the toolchains that power applications like ChatGPT, Claude, and Gemini. Finally, it helps reduce the effort required to establish AI/ML toolchains for the latest hardware through AI-based automation.

This project addresses the challenges that span multiple levels of the ML stack—from adjusting modeling choices and high-level execution strategies—to implementing low-level optimizations across diverse hardware architectures. The investigator proposes to build a unified program representation that encapsulates high-level computational and data encodings, as well as low-level optimizations. An AI-driven ML compiler agent then interacts with structured tools to iteratively optimize the program. This project accelerates the deployment of advanced machine learning models across a broad spectrum of platforms, enabling rapid innovation and supporting the next wave of AI applications and toolchains.